Science Collaborative Project

Science Collaborative Project is a three project for 60 underprepared junior high school science teachers from minority school districts in New York City (Districts 4, 5, 6, 9, and 10). These teachers will take a specially designed sequence of four courses (summer session and academic year) at CCNY in physics, chemistry, earth sciences, and life sciences. These courses are designed to both improve the teachers' understanding of basic concepts in these four areas, and to extend their pedagogical skills in teaching physical and life science material in largely minority junior high schools. In addition, a major aim of the project is to improve the science skills and attitudes of minority students. Approximately 45% of the science teachers in these five districts will participate. They will receive 18 graduate credits from CCNY for the course work. In addition, through collaboration with experienced junior and senior high school science teachers at Bronx High School of Science, participants will have the opportunity for extensive practice teaching during summer sessions. Participants are expected to attain a level of competency that would permit many of them to help other science teachers in their districts.